Research in Differential Geometry and Topology

Abstract for DMS - 0104044

In this proposal the research will study the geometry,
asymptotic behavior, conformal structure and topology
of properly embedded minimal surfaces in R3 .
One of the main goals of the proposal is to classify
all properly embedded minimal surfaces of genus zero
and to describe the asymptotic geometry of all finite genus examples.
Related theoretical techniques concerning compactness,
regularity and convergence of minimal surfaces of
locally bounded genus will be investigated as well.
One hoped for application of this research is
to classify all smooth finite group actions on S3 .
Finally the research proposes to prove that Bryant surfaces
in hyperbolic three-space are unknotted.

Classical minimal surface theory has its roots in 18th and 19th century mathematics
and gives one of the first important examples in what is called the
calculus of variations, first described by Euler.
Physically minimal surfaces can be modeled locally as soap films on wires
or by surfaces of least-area relative to local boundaries.
These surfaces play an important role as a tool in the study of
three-dimensional topology and Riemannian geometry.
The research in this proposal concerns global properties
of these surfaces and possible applications
to basic research in three-dimensional topology and geometry.